Phylogenetic and Structural Relations Among Proteins Conference to be held September 28-October 1, 1995 in Rensselaerville near Albany, New York

An interdisciplinary meeting entitled "Phylogenetic and Structural Relations among Proteins" sponsored by the Wadsworth Center, the State University of New York at Albany and the Nucleic Acid Technologies Foundation will be held September 28October 1, 1995 in Rensselaerville, New York. The meeting will be the third in the series of Albany conferences on Computational Biology. The aim of this conference is to explore the computational tools and approaches being developed in diverse fields within biology, with emphasis this year on phylogeny as apparent in relationships on the molecular level. The theme of the conference will be developed in five sessions: (1) 3-D Structural Relationships Among Proteins, (2) Sequence-Structure Interface, (3) Data Bases, and (4 and 5) Phylogenetic Methods and Protein Trees. The conference participants will be comprised of mathematicians, computer scientists and molecular biologists.